Acquisition of a Simultaneous Thermal Analyzer/Quadrupole Mass Spectrometer for Undergraduate Research in the Physical Sciences

With support from the Major Research Instrumentation (MRI) Program, the Department of Chemistry at the University of Houston - Downtown Campus will acquire a simultaneous thermal analyzer - quadrupole mass spectrometer (STA-QMS) instrument. Specific scientific studies currently underway at UHD that will utilize an STA-QMS include: 1) phase structure and transitions in polymers, 2) compositional effects on the thermomechanical properties of natural and synthetic obsidians, 3) determination of volatile species in fluid inclusions related to ore deposits, and 4) determination of the thermal properties of oil bearing rocks.

Integrating the thermal analyzer with mass spectrometry results in a powerful analytical tool for characterizing thermal decomposition. The instrument provides accurate weight loss or weight gain data of solids while simultaneously measuring the concentrations of the product gases to provide kinetic data needed for process evaluation. These studies will help to identify advanced materials for energy generation.